Mathematical Sciences: Pacific Northwest Geometry Seminar (PNGS)

This award will support the continuation of the Pacific Northwest Geometry Seminar. It will provide opportunities for frequent contacts between workers in similar fields and thereby help the participants keep abreast of recent developments. It will also provide an ideal setting for the initiation of new collaborations. The seminar has been supported by the Foundation since 1978 and has operated at very high scientific and efficiency levels. This small award represents an excellent investment of programmatic funds.